Cumulative Impact Study of Informal Science Learning

9630734 Crane Research Communications Ltd. will develop research designs, measurement, and analysis techniques for the assessment of the impacts of informal science learning television programming and other media. Experts in the fields of psychology, science education, communications research, and evaluation and testing will develop methodologies and instruments to: o better assess impact on attitudes, cognition, and behavior for specific audiences, o take into account the idea that informal science learning may take a variety of forms, and o better assess cumulative impacts of television and other media on informal science learning. The PI's for the project will be Valerie Crane, President of RCL, and Beth Rabin and Suzanne Carter, both on the RCL staff. Advisors would include experts in research on children's television programming such as Ellen Wartella and Keith Mielke, specialists in inquiry-based learning and formal and informal science curricula such as Matthew Schneps, and specialists in evaluation and testing such as Edward Chittenden.